NSF Minority Postdoctoral Research Fellowship for FY-1999

This action funds an NSF Minority Postdoctoral Research Fellowship for 1999.

The research and training plan is in the area of environmental and ecological physiology and is entitled "Physiological and molecular responses of fish to fluctuations in environmental oxygen." Intertidal fishes experience daily extremes in environmental oxygen tension. Fish living under chronically low oxygen conditions have been rather extensively studied but less well understood are the adaptations to fluctuating oxygen. This project will determine the physiological effects of daily changes in environmental oxygen and whether or not fish thus exposed will express proteins analogous to those produced by mammals during low oxygen exposure.